Fantasy Sports Games as Cultures for Informal Learning

This project will research distributed, online fantasy basketball games, which are quite popular with many kinds of players, including informal science education under-represented groups, and which entail some degree of informal statistical reasoning and decision-making strategies. The game is not playing basketball per se, but taking on the role of a team owner or coach who needs to decide how best to compose a team given necessarily limited resources. The research team will provide a method for framing and researching statistical understanding and decision making of expert and novice players, then, based on the research, will develop scaffolded techniques for helping players become more reflective on and adept with the statistical knowledge and decision making strategies they use.